AF: Medium: Algorithmic Research in Game Theory, Networks, and Biology

Over the past two decades there have been many examples of
results and insights in the Theory of Algorithms and Complexity that are motivated by,
and inform, important research fronts in other sciences: Quantum Computing,
Markov chain Monte Carlo, and Algorithmic Game Theory are
examples. This project is about computational research
whose purpose is to shed light to a broad front of central problems in
Game Theory and Economics, Networking, and Biology.
Aspects of this work involve devising algorithms for approximating
Nash equilibria, or identifying computational impediments to the task;
understanding better the power and limitations of learning and
distributed algorithms for computing equilibria; exploring from the
algorithmic standpoint the refinements of the Nash equilibrium concept, as
well as of equilibrium selection processes, which have been
developed by researchers in Game Theory over the past fifty years;
coming up new, compelling, and computationally motivated solution concepts;
identifying complexity-theoretic impediments to the central problem of characterizing
the optimal multi-object auction, as well as developing algorithms and lower
bounds for the problem of computing price equilibria in both the
most general setting and in novel special cases of markets.
Further goals of this project in the realm of Networking include
studying a recently identified class of models known as ``networks of games;''
determining the extent to which sophisticated pricing schemes
can improve the efficiency of selfish routing; and the analyzing two new
genres of network models: One for social
networks, and one for financial markets. In Biology, a recent result
established that natural selection under recombination optimizes not fitness,
as it had been assumed for decades, but a novel metric which we call ``mixability;''
this project shall follow on this work by devising techniques for proving mathematically
this effect, as well as gauging rigorously its impact on Evolution, and and by exploring
the relationship between recombination, mixability, and genetic modularity.

This project is likely to produce new insights into both Computation
and the target disciplines (Game Theory, Networking, Theory of Evolution),
as well as new mathematical techniques. In Algorithmic Game Theory,
it seeks to make progress on some of the deepest and most looked at problems, but also to
identify new exciting research fronts and directions in this field.
In the Theory of Evolution, the effort is to shed light on some of
the most fundamental and old questions of this important discipline.
The insights from this work will be used in the development of graduate and
undergraduate courses. A substantial part of this project aims at
understanding and improving the global information environment (the
Internet, the worldwide web, and the digital social networks they
enable), which is one of Humankind's most valuable resources.